REU Site: Dynamic Urban Environmental Systems and Sustainability in Newark, NJ

The Dynamic Urban Environmental Systems and Sustainability (DUESS) REU site in Newark, New Jersey engages students in research related to the environment and sustainability in urban settings. Participants are from groups underrepresented in the Geosciences, include community college students, and either attend urban institutions or live in urban areas. The focus on urban systems allows students to conduct research relevant to their daily lives and communities, and demonstrates how scientific research can benefit society. Students are mentored by research active faculty at Rutgers University-Newark, receive professional development training, participate in enrichment activities, and interface with Newark community organizations and local government. Students are guided to pathways from community college and 4-year programs to careers in research. Creating career pathways for underrepresented students is essential, as racial minorities comprise 33% of the U.S. population, but only 14% of employed scientists and engineers. This represents an untapped human resource potential for STEM careers. Maximizing human resource potential is especially critical for urban areas, such as Newark, where there is a need for trained professionals to advance local environmental and sustainability efforts. The DUESS REU is designed to reinforce the interest of the students in Earth and Environmental Sciences, and have them appreciate the value of organized scientific research. It provides a critical link from success in college to graduate school and a potential research career. The result is improved participation and diversity in the Geosciences, and an increase in the number of appropriately trained scientists to meet the growing need nationwide.

DUESS REU participants will investigate the impact of concentrated human activity on the environment (soils, water, air, biota) and sustainability in urban systems. Students develop research projects within areas of faculty research expertise in Near Surface Geophysics, Urban Geochemistry & Biogeochemistry, and Urban Ecology, Sustainability & Biodiversity. The participants are primarily underrepresented minority (URM) students from 2-year and 4-year urban institutions. Students conduct DUESS themed research with faculty mentors; participate in professional development to integrate the research experience with the educational pathway; and engage in supporting activities that promote student-student, student-faculty and student-community interactions. The DUESS REU has six goals. 1) Recruit and provide research experiences and support for 3 cohorts of 12 academically talented students who are at least 60% URM and 50% Community College students by leveraging other NSF and non-NSF-funded programs at Rutgers University-Newark. 2) Develop an integrated research program for undergraduates that exposes them to cutting edge geoscience techniques. 3) Develop a research experience that builds from learning research techniques to helping formulate research plans. 4) Develop a model to engage urban URM students in advanced research by making it pertinent to their lives and interests. 5) Establish a clear pathway to encourage students to pursue careers in science that involve research. 6) Change the culture of the program to better incorporate integrated undergraduate research into the curriculum. This project will increase the number of underrepresented students pursuing careers in research and science, through a model for group place-based research in an urban environment that may be replicated in urban areas nationwide.